International Conference on Non-Accelerator Particle PhysicsBangalore, India, January 2-9, 1994, Award in Indian and US Currency

9317626 Yodh Description: The International Conference on Non-Accelerator Particle Physics will convene in Bangalore, India from January 2- 9, 1994. Gaurang B. Yodh, University of California, Irvine and R. Cowsik, Tata Institute of Fundamental Research and Director, Indian Institute of Astrophysics (IIA), Bangalore are the organizers. This conference is unique in its interdisciplinary approach to discussing the close interconnections among apparently diverse areas of study. It is dedicated to the discussion of the fundamental physics that emerges from diverse areas of non-accelerator particle physics such as: Solar Neutrino Astronomy, Cosmic Rays, Particle Physics, Neutrino Physics and the Detection of Dark Matter. Substantial progress has been made in these fields during the past five years and it is widely thought that definitive answers to several questions in Physics beyond the Standard Model can now come from Non-Accelerator methods of inquiry. The conferees will review recent developments in various areas of Particle Physics, their implications in astrophysical situations, the experimental detection of dark matter, theoretical interpretation and empirical/physical models of the large scale structure of the Universe. Scope: This conference will precede the start of a major institutional collaboration among several members of the Universities of California and the Indian Institute of Astrophysics, Bangalore in areas of research discussed at the conference. Therefore, the conference will be an important initiating activity for the interdisciplinary research program and for launching the IIA into modern areas of study. Since considerable research is going on in the US in all fields to be discussed, this will be an opportunity for the US researchers to present their work to some of the most distinguished scientists from all over the world. The proceedings will be published. ***